Genetic and Molecular Studies of the Kismet Locus

Dr.Tamkun's research is focused on the genetic and molecular mechanisms controlling the development of Drosophila melanogaster. This proposal concerns a new homeotic gene, kismet, identified by virtue of its genetic interactions with homeotic mutations. Genetic studies of the kismet locus have suggested that it is a target, or encodes a cofactor, of the Antennapedia gene product. Dr.Tamkun proposes to continue concurrent genetic and molecular analyses of kismet to determine its precise role in the determination of segmental identities during development. This will be accomplished through the use of germ-line and somatic clonal analyses, the continued characterization of genetic interactions between kismet and the homeotic loci of the Antennapedia and bithorax complexes, and the molecular cloning of kismet. Antibodies directed against the kismet protein will be generated and used to determine its subcellular distribution. The spatial and temporal expression of kismet during development will be followed using nucleic acid and antibody probes. The effect of various homeotic mutations on the expression of the kismet mRNA and protein will be examined to determine if this locus is a target of homeotic gene regulation. %%% The determination of body segment identity in fruit flies is an excellent system for studying the control of pattern formation in multicellular organisms. Mutations in one class of genes can result in the transformation of one body segment into the likeness of another, such as the transformation of an antenna into a leg. This work will further our understanding of how this class of genes functions.